Solution of the Inverse Radiation Problem Using Angular Tomography: Determination of Local Radiative Properties in Axisymmetric Systems

Tomographic methods are used to reconstruct the axisymmetrical distribution of volumetric absorption coefficients. The method used is interesting and it could be extended to other tomographic problems in a scattering and emitting medium. Tomographic methods offer the possibility to use sensitive absorption techniques in non homogeneous media. This extension to scattering media answers a practical need. Such formulation, in a versatile computer form, would be very useful in a number of diagnostics applications.